2016 Regenerative Medicine Workshop at Hilton Head

1566060
Guldberg, Robert E.

NSF has made an award to support travel costs and registration fees for 6 workshop speakers and registration fees for 24 trainees and 5 young faculty members who will attend the three-day Regenerative Medicine Workshop at Hilton Head being held March 16-19, 2016, on Hilton Head Island, SC. The workshop, part of a series that began in 1996, brings together national and international regenerative medicine experts from a variety of engineering and scientific disciplines in a small conference setting to effectively convey knowledge, stimulate new ideas critical to advancing the development of regenerative medicine applications and therapies and promote research collaborations. This year's workshop will focus on the theme of regenerative medicine discoveries, technologies and translation. Conference session topics include: Translation of cellular therapies, Immunoengineering, Controlling stem cell fate, Regeneration of cardiovascular tissues, Synthetic biomaterials, Arthritis and tissue regeneration and Tissue engineering and personalized medicine.